A National Model for the Undergraduate Laboratory in Research

9451359 MacWhinney The laboratory microcomputer has become a crucial tool for conducting experiments in psychology. This project therefore supports the deployment of a computer program, called PsyScope, that will remove this technological barrier. A national prototype is being developed for the use of this program as the backbone for the teaching of Research Methodology in Psychology. Construction of this prototype involves completion of (1) an introductory manual, (2) a series of standard experiment types, and (3) the building of tools for linking experimental design to statistical analysis programs. Working through a consortium of universities and colleges, we plan to disseminate this prototype throughout the nation. It is also expected that successful deployment of this system nationwide will lead to a major improvement in the research training of the future generation of experimental psychologists.